Conference: 2027 Quantitative Genetics and Genomics GRC and GRS

The 2027 Gordon Research Conference and Gordon Research Seminar on Quantitative Genetics and Genomics will bring together researchers, educators, industry scientists, graduate students, postdoctoral researchers, and early-career scientists to discuss emerging advances in understanding the genetic basis of complex traits in plants, animals, and humans. The conference theme, “Use of Machine Learning and Artificial Intelligence in Quantitative Genetics,” addresses a rapidly growing area of science with important implications for agriculture, food security, human health, and biotechnology. By supporting scientific exchange and training in quantitative genetics and genomics, the meeting will help advance approaches for improving crop and livestock breeding, strengthening disease prediction and prevention, and enhancing the use of genetic information for societal benefit. The accompanying Gordon Research Seminar and mentoring activities will provide important professional development and networking opportunities for trainees and early-career scientists, helping to prepare the next generation of researchers in this field.

The conference will be held February 14–19, 2027, in Ventura, California, and will be preceded by the Gordon Research Seminar on February 13–14, 2027. The scientific program will include nine sessions focused on the application of machine learning and artificial intelligence to quantitative genetics and genomics. Topics will include simulation studies, prediction of complex traits, genomic mapping, integration of multi-omic data, transfer learning approaches for improving polygenic score prediction and gene discovery, and emerging opportunities for AI-enabled genetic research. Additional sessions will address challenges related to data access and sharing, use of secondary data resources, and methodological developments needed to ensure robust and reproducible analyses. By providing a forum for presenting cutting-edge research, identifying future directions, and fostering interdisciplinary collaboration, the meeting will promote new analytical methods, improve the interpretation of large-scale biological data, and accelerate the translation of genomic discoveries into practical applications. The conference agenda and the proposed activities contribute to strengthening societal and economic importance and are central to the national priorities of artificial intelligence and biotechnology.